An Infrared Spectrophotometer/Data Collecting Station for Undergraduate Chemistry

This project aims to upgrade the education of chemistry majors and minors at Shepherd College by providing an infrared spectrophotometer- data station combination for student use. The computer-controlled equipment will be utilized by students in Organic Chemistry and in a Computers in Chemistry course, and will expand substantially the opportunities for undergraduates to conduct research. In addition, the project will provide an opportunity to introduce infrared spectroscopy (IR) in local high schools and to teach IR theory and operation to area high school teachers.